Observing and Modeling Land Surface Effects

9615583 Grossman This research involves participation in an integrated observational and modeling effort that includes planning and conducting the 1997 field campaign for the Cooperative Atmosphere-Surface Exchange Study (CASES-97) and subsequent data analysis. CASES-97 will be conducted for a four-week period in May, 1997, in the Argonne Boundary Layer Facility (ABLF) located in the southern two-thirds of the Walnut River watershed, southeast of Wichita, Kansas. The specific objectives of the research supported under this award are: Document the diurnal cycle of the fair-weather planetary boundary layer (PBL) in terms of both surface properties and the budget equations of the PBL profiles of wind, temperature and humidity; Relate diurnal variation of PBL profiles and depth to surface processes, the presence of clouds and entrainment; Collaborate with other researchers to test PBL and surface schemes in numerical models; Optimize the design of planned long-term PBL and surface observations in the ABLF and CASES arrays, through comparing ABLF profiles to independent observational data, and through evaluating degradation of budget calculations when CASES-97 measurements are selectively eliminated. ***